Stone Child College SMET Planning Grant Application

Stone Child College
NSF 01-61 Planning Grant Application
Stone Child College
National Science Foundation
Tribal Colleges and Universities Program NSF 01-61
Project Summary
PROJECT TITLE: SCC-SMET Institutional Planning Grant Project
FUNDING SOURCE National Science Foundation
PROJECT LOCATION Stone Child College, Rocky Boy's Indian Reservation, Montana
LENGTH OF PROPOSED PROJECT
January 1, 2002 - December 31, 2002
SHORT DESCRIPTION OF
THE POPULATION TO BE
SERVED BY THE PROJECT
The proposal will serve primarily American Indian students currently attending or projected to attend Stone Child College.
PROJECT OBJECTIVES The overall goal of our project is to ``to measurably increase'' the number
of graduates in SMET and related fields at SCC by providing a high quality learning environment capable of meeting or exceeding the instruction received at four-year institutions. SCC is adamant in our belief that in order to attract more students into these disciplines, our instructional methodologies, as well as advanced teaching devices, are the key to induce student curiosity and eventual enrollment into SMET fields. By developing a five-year plan based on research, we believe we can successfully pursue other resources for the implementation of our SMET plan. Therefore, SCC has developed the following major objective which will guide us during this initial 12-month planning process:
Major Project Objective
During the project period of January 1, 2002 through December 31, 2002, SCC will develop a researched-based five-year institutional plan to enhance our SMET program as measured by internal and external evaluation results and the plan being formally adopted by the SCC Board of Regents prior to the end of the project period.
COLLABORATIVE PARTNERS
Stone Child College will coordinate this project with our Packard Foundation project, DoD project, MSEIP projects, as well as other proposed projects SCC has currently written and are awaiting approval/disapproval.
TOTAL FUNDS REQUESTED $50,000. (NSF funds)
PROPOSAL NO.: 0122965
PRINCIPAL INVESTIGATOR: Stamper, Edward
INSTITUTION NAME: Stone Child College
TITLE: Stone Child College SMET Planning Grant Application
NSF RECEIVED DATE: 04/30/2001